Design, Characterization, and Electron Hopping Properties ofThin Molecular Films

This award, made in the Advanced Materials and Processing Program, extends support for the research of Murray and coworkers on the design, characterization and electronic properties of thin molecular films. The goals of the research are to (1) study the electrochemical formation of ultrathin dielectric and conductive films with discrete electron-hopping sites by in-situ atomic force microscopy (AFM) and ellipsometry; (2) Prepare nanostructures by using the AFM tip to create patterned holes in the films and to re-deposit other thin film materials in the holes, and (3) study transport properties of mixed valent molecular films which lack ionic conductivity by measuring the Hall effect and magnetoresistance. Assemblies of the films will be utilized in electron and hole-injecting contacts, rectifying molecular junctions, thin film transistors and molecular light emitting devices. %%% This highly interdisciplinary research will explore the underlying fundamental chemistry of thin film synthesis and characterization, develop new technology for producing nanostructures and advance the understanding of the physics of devices where charge transport is controlled by electron-hopping.